Biological Halogenation Mechanisms

This project focuses on the biosynthesis of volatile halometabolites in the marine environment. Current plans include continuing studies on the mechanism of action of bromoperoxidases isolated from marine algae. In particular, a powerful bromoperoxidase which has been isolated and purified to homogeneity from Penicillus capitatus will be studied with respect to its mechanism of action and the chemical nature of its halogenating intermediate. the P. capitatus enzyme catalyzes the peroxidation of bromide ion with concomitant formation of bromoform and other volatile halohydrocarbons from -keto acids. Preliminary experiments have detected a new enzymatic route for the biosynthesis of methyl chloride via a methyl transfer reaction. Cell free extracts of wood rot fungus, Phellinus pomaceus, catalyze the formation of menthyl chloride and methyl bromide from S-andeosyl-methionine and the appropriate halide anion. Plans for the immediate future include the isolation, purification, and characterization of this methyl chloride synthetase enzyme(s). A major goal of this research is to discover the sources and mechanisms of production of methyl chloride in the marine environment. The annual global emission rate of this compound is estimated to be 2 X 10 7 tons per year and the principal source of this compound in the upper atmosphere is biological activity on the oceans (> 90%). Methyl chloride and other volatile hydrocarbons are produced as marine forms, accumulate in the ocean waters and then distill into the atmosphere. In view of the concern over the hydrocarbons in the upper atmosphere, it appears important to learn something about the biosynthesis of a compound which is undoubtedly the most prevalent of all hydrocarbon species. Also, if methyl chloride synthetase genes could be inserted into plants and soil microorganisms this could theoretically lead to halotolerant crop production and perhaps allow reclamation of salty soils. Dr. Hager is eminently qualified for this work.